The Ice Core Working Group (1989-1991)

During 1989-90 the Ice Core Working Group (ICWG) will develop a long-range plan for U.S. Ice Core Research. This plan will be based on the major research questions and potential ice core sites identified in the report of the Workshop of U.S. Ice Core Research and the information gathered in the report on U.S. Ice Core Research Capabilities. The ICWG will actively solicit the input and comments of key members of related disciplines, such as paleoclimatology, climate modeling, oceanography, atmospheric sciences, etc, to identify research priorities and a suite of ice core projects for the next decade. The plan will formulate the contributions of the U.S. Ice Core research community to the study of Global Change (ICSU program). During 1990-91 the ICWG will work with NSF and its Polar Ice Coring Office (PICO) towards the realization of the research plan. The requested budget covers the costs of ICWG meetings held to discuss, and further develop, the long-range research goals, as well as day-to-day administrative costs of the ICWG.